Calculus, Concepts and Computers

Three mathematicians within the Purdue University-Indiana University system will teach three small (25-30 students) prototype calculus courses based on computer, computer languages and algebra systems. The geometric and conceptual aspects of calculus, solution of applied problems, and reduction of routine drill by using symbolic manipulation will be emphasized. These courses will include both mainstream and non-mainstream calculus. The extent of the use of computer labs and the use of the ISTEL and Maple software packages will vary. A consulting board of 25 experts from the various academic disciplines will suggest applications from science and mathematics from the latter third of the 20th century. A unique component of this project will be research on how students come to understand or not to understand the underlying ideas in calculus. Theoretical analysis, observations and experiments on the teaching and learning of calculus will be formulated. Purdue University will share project costs.